RUI: Analysis of Standard Model Charm Baryon Particles in FNAL Experiment 781

The PI proposes to analyze the data collected by Exp781 at FNAL to search for charmed baryons/hyperons. This proposal is approved for the duration of two years.